Tribology of Polymer Nanocomposites

0099649
Sawyer
This SGER award will support a feasibility study of the effect of nanoparticle strenghthening of polymers for tribological applications. There are strong indications that polymers filled with hard nanoparticles
will exhibit significant improvements in tribological performance as
compared to traditional filled polymers. Polymers are widely used in
bearing applications because they provide quiet continuous operation, have a
low coefficient of friction, absorb vibrations, are compliant and
non-abrasive to the counterface, can be easily manufactured, are
inexpensive, non-corrosive, and are generally biocompatible. The challenge
in designing bearings with homogeneous polymeric materials is their low wear
resistance (high wear rates). Hard filler particles are frequently added to
improve the wear resistance, however these hard filler particles increase
the abrasive wear to the counterface and increase the sliding coefficient of
friction. Lubricious fillers are also added to polymers and under certain
operating conditions can reduce the wear rate and the coefficient of
friction, however a constant supply of lubricous filler must be available at
the wear surface and these materials are frequently sensitive to the
environment. The ideal filler for polymers would be inert, reinforcing,
non-abrasive, and reduce the coefficient of friction. There is good
evidence that nanoparticle filled polymers may be this 'ideal' composite.
For example, recent studies have shown that the wear resistance can increase
in polymer composites filled with hard nanoparticles, while at the same time
the wear of the counterbody decreases and the sliding coefficient of
friction decreases. This type of tribological behavior will have an impact
in polymeric bearings covering the spectrum from industrial applications
needing dry sliding bearings, to orthopaedic implant materials, to
self-lubricating bearings for space environments.

In order to design composites with the optimum properties and predict
performance, however, some severe limitations must be overcome. First, our
understanding of the mechanisms contributing to wear performance in filled
polymers is poor. For example, the role of the filler / matrix interface
and the effect of particle size has not been well studied nor are there
appropriate models that consider the interface or size of the filler.
Secondly, it is unclear for non-lubricious nanoparticles what the mechanism
is that lowers the coefficient of friction. Finally, nanoparticle filled
polymers have not comprehensively explored for wear applications despite the
strong evidence suggesting large improvements in performance.

The overall scientific goal of the project is to gain a fundamental
understanding of the wear mechanisms in filled polymers by a) experimentally
isolating the effects of particle size (10 nm to 10 micrometers), particle
aspect ratio (1 to 1000), dispersion, filler / matrix interface, and matrix
properties on performance, and 2) obtaining a parametric understanding of
the correlation between wear behavior and other mechanical properties, 3)
modeling of the wear properties.
***